Efficacy of Informal Science Education (ISE) Practices to Develop Hispanic Citizen Scientists in the Watershed of the Rio Grande of Manati, Puerto Rico

The Conservation Trust of Puerto Rico is creating citizen science projects in five research areas (insect monitoring; coastal/river system management; bird communities; bat assemblages; and cultural resources) that allow 140 Hispanic residents of Puerto Rico (age 14 and older) to move along a continuum of research involvement from contributor to collaborator to co-creator. As citizen scientists engage in scientific research that measures the effects of urban development on the Manati River watershed in northern Puerto Rico, the project team is evaluating the degree to which participants show changes in science knowledge, skills, attitudes, communication, and behavior.

The proposed project is accelerating the development of citizen science activities in Puerto Rico. New scientific knowledge generated by citizen scientists will have practical importance within and beyond the Manati watershed because Puerto Rico is undergoing rapid urban development, resulting in the loss of biodiversity and emergence of environmental problems such as lower water quality. Environmental data collected by citizen scientists will form an environmental database that permits long-term watershed monitoring and informs land use decision making.